Group Travel Award, International Association of Hydrological Sciences, Budapest, Hungary, July 2-10, 1986

Support is provided for U.S. participation in an international conference on the hydrological sciences. Group travel support is provided for four participants who will participate in a Symposium on Design of Water Quality Information Systems.